Engineering Research Equipment: High Resolution Electron Energy Loss Spectrometer

ABSTRACT CTS-9532086 A high-resolution electron energy-loss spectrometer (HREELS) is acquired and installed in an existing ultrahigh vacuum (UHV) chamber. Use includes analysis of thiols and other organosulfur compounds on molybdenum crystals and on sulfided or carbided molybdenum. These studies are relevant to hydrodesulfurization (HDS) processes. ***